RUI: Taphonomic Character of Plant Fossil Assemblages at the Permian-Triassic Boundary, Karoo Basin, South Africa

PROJECT SUMMARY
Page A
Many hypotheses have been proposed for the response of the land plants, insects, and
vertebrates to the P/Tr boundary extinction event. Many of these hypotheses are based on
poorly unconstrained spatial and/or temporal data. Most lack any contextual constraint
of the paleontological data used in the analysis used to support the interpretation.
Hence, it is not possible to know if the “trends” or “changes” seen to occur from the
preboundary assemblages into the transitional and post-boundary assemblages are a true
reflection of the ecosystem or are biased taphonomically.
This proposal hypothesizes that an isotaphonomic data set of pre-boundary,
trans-boundary, and post-boundary plant-fossil assemblages will allow for the emergence of
a credible characterization of the response within this part of the terrestrial ecosystem
at this critical point in Earth history. Will the isotaphonomic plant-fossil record
parallel or be tangential to the well established response in the marine realm? Or, will
there be no change in biodiversity; might the replacement and/or turnover occur earlier or
later in time than directly at the P/Tr boundary?
Research conducted, to date, in KwaZulu Natal Province, South Africa, in the northeastern
part of the Karoo Basin indicates that Late Permian megafloral assemblages are preserved
in four different sedimentologic and taphonomic conditions. Each megafloral assemblage
type preserves a very different signature of the vegetation contributed to the fossil
record. These are: (1) parautochthonous assemblages within abandoned fluvial channel fill
sequences, similar to modern and other ancient oxbow lakes; (2) dispersed and isolated,
allochthonous assemblages preserved on foreset beds and reactivation surfaces within
large, fine-grained fluvial regimes; (3) concentrated, mat-like allochthonous assemblages
within bedload dunes of coarse siltstone channels; and (4) dispersed, sorted assemblages
in turbidites. Data presented in the text concerning two localities ? Bulwer and
Wagendrift Dam ? demonstrate that previous interpretations of the fossil assemblages in
these sites are incorrect. And if these data are used from the literature as the basis
for interpretation, the resulting suppositions are inappropriate.
With an increasing continentalization of the sedimentary package in the Karoo into the
Triassic, all but the last taphonomic assemblage type should be encountered in the
transitional and post-boundary sections. Seven cross boundary and post boundary sections
have been identified in which plant fossils and/or vertebrates are preserved, and will
serve as the basis for the 2004 field season. It is anticipated that identification of
isotaphonomic assemblages in this part of the stratigraphy will allow for direct
comparison of biodiversity indices with those presently being determined by other members
of an international research team, involving U.S., Dutch, and South African scientists.
The present proposal requests funds to support undergraduate student research designed to
assist in the acquisition of an isotaphonomic data set in the Karoo Basin, South Africa.
Through the next two years of field work and laboratory analysis, P/Tr and early to middle
Triassic localities will be assessed to identify and characterize those depositional
sequences as found in the latest Permian.